The Socio-Economic Organization of Business Activity in Cuanajo, Michoacan, Mexico: A Test of the Theories of the Institutional Economists

This award supports the research of a cultural anthropologist studying small wood-working firms in Mexico. The research will examine a theory of "institutional economics" concerning the costs of transactions within and between firms. The theory predicts that these transactions costs determine the shape and size of a firm, and this projects tests and advances this theory by confronting it with data from small, often family-organized firms in a rural area of Mexico. The theory was formulated to deal with all firms "in the abstract", but with often unconscious bias towards the sorts of large firms one finds in developed, industrialized countries. Confronting this theory with data from small family firms in a less developed country like Mexico will reveal logical inconsistencies and flaws that can be modified to improve its power and generality.